Dynamic Problems in Poroelasticity

This research is focused to resolve fundamental dynamic problems in porous solids and fluid-porous interfaces. The applicability of ultrasonic phenomena will be analyzed for a fluid-porous interface and scattering problems related to pore-fluid resonance effects will be determined. Wave propagation in a fluid-filled porous rock will be studied to determine the effect of porosity on velocity and attenuation of guided waves. Scattering in porous media will be considered by placing cylindrical and spherical inhomogenities in the body. The results of this research will help to assess the feasibility of using poroelastic phenomena to analyze the role of microstructure on effective elastic moduli of porous structures such as rocks and composite materials containing microcracks.